Acquisition of CVD Reactor for Chemical Engineering at PVAMU

Abstract 9512360 Gabitto This proposal is for funds to develop a chemical vapor deposition facility to investigate the deposition of silicon thin films. The objective of the proposed research is to build a diagnostic experimental apparatus to study plasma and photo CVD. This proposal requests funds for a CVD reactor system.